Studies of the Synthesis and Properties of Group IVA Element-Phosphorus Compounds

This project in the Inorganic, Bioinorganic and Organometallic Chemistry Program will involve the synthesis and characterization of heterocyclic compounds containing a variety of main-group elements such as P, Si, Ge, As, Al, and Se, and especially compounds known as azanes which will contain nitrogen and P, As, Al, S or Se. These compounds are of interest because they are expected to have unusual conductivity and electronic and ferromagnetic properties. Some of the compounds to be synthesized will contain cavities designed to bind selectively such small molecules as carbon dioxide, carbon disulfide or oxygen. The molecules to be studied will include linear and macrocyclic azanes of P, As, and Al based on designed 1,4-functional units which will be synthesized stereoselectively and with specific coordinating properties. Multiple donor site cavity-containing (cavitand) cyclophosphazanes, uniquely capable of stabilizing lambda4-E-lambda4 and lambda5-E-Lambda5 P-E-P bridge bonds (where E is a main-group atom), as well as fractional P..P bonds, will be examined. Using the trimethylsilylphosphine synthon and opposed-polarity functionality based reactions, new group IV element (E=Si, Ge) cyclodienephosphines, phosphabenzenes, and Group IV element cage molecules will be synthesized. These will provide frameworks in which to study pi electron delocalization in 1,4-E,P-heteroatom rings, intramolecular transannular E-P interaction in cages, and cage encapsulation and/or coordination of atoms or small molecules.